US Africa Materials Workshop; Pretoria, South Africa; August 6-9, 2000

The U.S. Africa Materials Workshop, an international workshop on materials
Research, education, and technology, is being planned for August 6-9, 2000 in Pretoria,
South Africa. This workshop will be the fifth in a series involved NAFTA countries
(1995), European countries (1996), Pan-American countries (1998), and Asian Pacific
countries (1998). All of these workshops shared the common goal of fostering greater
international cooperation and collaboration in materials research, technology, and
education. Participants in these workshops have expressed the desire to establish a
Materials World Net, which would link materials scientists and engineers around the
world by providing them with access to comprehensive databases and data warehouses.
The workshop program will focus on discussions of topics already selected by the
Organizers from the participating countries. These topics are Education and Training,
Civil Infrastructural Materials, Materials Value-Chain, Advanced and Emerging
Materials, and Application of Polymers and Composites. The goal of the workshop is to
Enhance international collaboration in materials research, technology, and education
Between US and Africa.
%%%
A potential outcome of the proposed US Africa Materials Workshop, is the
Continued pursuit of the goal of creating this Materials World Net to foster greater
Cooperation and collaboration in the field of materials research, education, and
Technology worldwide.

The U.S. Africa Materials Workshop is being jointly funded by the Directorate for Mathematical
and Physical Sciences, The Directorate for Engineering and the International Division of the
Directorate for Social and Behavioral Sciences.
***